Intended, Initial and Established Settlement Patterns of the Foreign-Born in the United States

University of Illinois, Urbana-Champaign The proposed research investigates the settlement patterns of immigrants in the U.S. Three settlement patterns are defined: intended destination, initial destination, and the established destination. A first objective is to develop and validate a typology of the immigrant settlement system and to show how the immigrant settlement pattern evolves from the intended to the established pattern after arrival. A second objective is to determine the factors (i.e. personal, cultural, and economic) associated with settlement choice. The research is organized around a set of theories that center on the proposed evolution of the immigrant population system, focusing on empirical and theoretical links between immigration, internal migration and settlement patterns. Both the 1980 and 1990 Public Use Microdata Sample of the U.S. census, as well as, INS data will be utilized. Both descriptive and inferential multivariate techniques, including the 'expansion method', will be employed.